Laminations and Low-Dimensional Dynamical Systems

ABSTRACT

The proposal aims at developing new tools in low-dimensional dynamics.
Studying laminations/polynomials requires a combination of techniques
which already allowed us to show the existence of wandering gaps of
laminations and should lead to the description of dynamics of an individual
polynomial, and to the description of the combinatorial analog of the
boundary of the connectedness locus (i.e., the Mandelbrot set for high
degree polynomials). For the cycles of polynomials we plan to develop
the rotation theory analogous to that for interval maps, and a version
of the Sharkovskii theorem. We continue developing theory of
c-tent plane maps which combine expansive properties of tent maps with
properties of complex quadratic maps and should play the same role for
quadratic complex maps as tent maps play on the interval. We also deal
with Milnor attractors for conformal measures of complex maps, and
work on some problems in interval dynamics.

Some natural processes/maps are described by low-dimensional dynamical systems.
The project aims at solving a few problems helping describe these maps,
as well as their families. Among non-invertible maps in dimensions higher
than 1 the best in terms of their properties are complex polynomials, and
we plan to study the families of their combinatorial analogs for dimensions
higher than 2, as well as individual polynomials in terms of the coexistence
of their cycles (periodic processes). We also study so-called c-tent map,
Milnor attractors, and some problems for map of the interval.